Upgrading of Paleomagnetic Laboratory at the University of Florida

This award will provide 54% of the cost of acquiring a superconducting rock magnetometer and thermal demagnetizer system for use in paleomagnetic research in earth sciences. The instrument system will be operated and maintained in the Department of Geology at the University of Florida-Gainesville. The University is committed to providing the remaining 46% funds required. The acquisition of this new system will constitute a major upgrade of capabilities for the paleomagnetics laboratory at the University of Florida and will allow the group to engage in research on magnetization in small cores and channel cores to study the diagenesis of iron minerals in sediments and for detailed magnetostratigraphic studies.